Nonlinear interactions between random waves and vortices

Buhler
DMS-1009213

The investigator undertakes a theoretical and numerical
study of nonlinear interactions between waves and vortices in
problems spanning several subject areas, namely atmosphere and
ocean fluid dynamics, small-scale engineering applied to particle
mixing, and the dynamics of rotating superfluids in quantum
mechanics. Project topics include energy exchanges between
random waves and vortices in the ocean, the role of wave-induced
vortex structures for particle dispersal in the deep ocean, the
design and dynamics of small-scale engineering devices to model
the acoustic mixing of immersed particles, and the peculiar fluid
dynamics that attends the quantum-mechanical interactions between
waves and point vortices in rotating superfluids. A common theme
of these problems is that they involve huge separations of scale
between different dynamical components of the flows. Such
separations present mathematical difficulties and make
straightforward numerical simulations impractical.

The investigator takes up several problems that involve
analysis of the interactions between waves and vortices in fluid
flows: ocean fluid dynamics relevant to climate dynamics,
small-scale fluid engineering applied to acoustic mixing, and
rotating superfluids in condensed matter physics. The ocean is a
vast environment in which a multitude of dynamical components
such as waves and currents interact, and these interactions
eventually determine the present ocean state and also its future
development. Our ability to predict ocean dynamics hinges
delicately on our ability to understand and to model these
interactions, because a direct computer simulation far exceeds
our computational resources and will do so for decades to come.
This is so because different dynamical components of the flows
occur at vastly different scales of length or time. The
investigator mathematically and computationally studies the
interactions between waves and vortices, using modern
mathematical theory to simplify and thereby to reduce the
complexity of the interactions that must be modelled on a
computer. Similar scale-separated interactions among dynamical
components of flows are studied in other complex systems of
technological relevance, such as non-invasive particle mixing
techniques using wave engineering, and the detailed study of
superfluid behaviour that has recently become possible using
breakthroughs in laboratory technology.